Advanced Aerospace Manufacturing Education Project

(58) This project is bringing representatives from industry and education together to address training and education needs for today and the future. The principal issues that are being addressed are: (1) identifing parties who will validate the required competencies of the manufacturing technicians; (2) developing information about previous and ongoing efforts in aerospace manufacturing; (3) benchmarking existing educational models; (4) establishing linkages with other related programs, associations, and organizations; and (5) developing a definitive plan is needed to attract and retain individuals from underrepresented groups. Principal project participants include Boeing and Northrop Grumman, representing the customers for the training process; El Camino College, Oregon Institute of Technology, and Purdue University, as the education providers; and the Society of Manufacturing Engineers as a provider of continuing education, training and certification. The results of the project are being disseminated through a variety of media including workshops, conferences publications and expositions.